Some Packing and Covering Problems

This is a research planning grant. The PI is preparing a proposal dealing with packing and covering problems. The PI has produced research results in related mathematical areas and is expected to be successful in producing research results of interest in computer science.